I-Corps: Translation potential of a cell culture technology that synchronizes cellular circadian rhythms through precise temperature oscillations

This I-Corps project is based on the development of a system to recreate the body's natural daily rhythms in laboratory incubators. When new drugs are developed, scientists test them on living cells in culture to assess safety for clinical trials. However, unlike cells in the human body, cells in culture do not exhibit strong circadian rhythms. Cellular circadian rhythms control many biological processes, including drug sensitivity, toxicity, and efficacy. Diminished cellular circadian rhythms in tissue culture make laboratory results less reliable, contributing to drug trial failures that can cost billions of dollars and delay new medicines from reaching patients. This technology addresses this problem by introducing cellular circadian rhythms into cell culture via a wireless add-on system compatible with existing standard laboratory tissue culture incubators. By making cell behavior in the lab more closely mirror how cells function in the human body, this system may have broad applications across pharmaceutical companies, biotechnology firms, contract research organizations, and academic laboratories helping deliver better research results and bringing medicines to patients faster.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a cell culture technology that introduces biological time into laboratory research by synchronizing cellular circadian rhythms through precise temperature oscillations. Current cell culture systems maintain static 37°C conditions, ignoring the natural 1-2°C daily temperature fluctuations in the human body, which are essential for proper cellular function. Circadian rhythms regulate 10-20% of all gene expression, including critical pathways for drug metabolism and toxicity. When cells lose their natural temporal organization in static conditions, they become desynchronized, creating experimental variability that poorly predicts human clinical outcomes and contributes to the 90% drug-failure rate. This technology is an add-on device for existing incubators that provides wireless temperature control to replicate physiological temperature cycles. This means dangerous drugs may be identified more readily and safe drugs may advance with greater confidence, reducing the potential for costly late-stage clinical trials failures. This technology may allow the use of cellular circadian rhythms in tissue culture to become a controllable, reproducible part of the cultured cell drug testing process.